Upgrade and Computerization of Undergraduate Solid State Laboratories

The University of North Carolina at Charlotte is in the process of implementing a microelectronics program. Interdisciplinary and team- taught courses in solid state physics and in semiconductor device physics are being established jointly by the departments of Physics, Electrical Engineering, and Mechanical Engineering and Engineering Science. These lecture courses are being supported by laboratory courses in both subjects to be first offered in the Fall of l987, and they are to be required for all engineering students opting for a major in microelectronics. A dedicated computer and data acquisition system will be acquired for the laboratory which supports both of these courses; a programmable lock-in amplifier will also be used in several of the experiments. These instruments will make for a fully modern laboratory where students will gain experience in modern data acquisition techniques, as well as in the principles of solid state physics and of semiconductor device physics.